Engineering Research Equipment Grant: Equipment for High Speed Blank Casting

At the present time, many sheet metal products such as beverage cans are made from blanks cut out of sheet metal. Several processing steps are required to produce this sheet metal from the metal. Previous research conducted at the Colorado State University using a die and punch set has shown that it is feasible to cast thin blanks directly from the melt. This method could potentially eliminate the costs related to sheet metal manufacturing. However, further research is required to increase the speed of blank casting to the level needed to be cost effective. The requested research equipment will enable blank casting at higher speeds. In addition, mechanical and microstructural properties of blanks cast at high speeds would be investigated for further improvement in processing.